Physics Beyond the Standard Model

In the next five years, the Large Hadron Collider will probe the electroweak energy scale and provide information about the origin of mass, dark matter and the unification of forces. At the same time ongoing and future neutrino experiments will give us information about neutrino masses and the possibility of lepton number violation. Motivated by this, the phenomenological side of the proposal which will be carried out by two PIs on this proposal (Mohapatra and Luty) focuses on possible new physics beyond the standard model and their implications for current and future experiments. Areas to be investigated will be supersymmetry and its breaking, strong dynamics at the TeV scale, extra dimensions and grand unification of forces. On the more theoretical side another PI (Gates) will focus on the mathematical structure of both supersymmetry and string theory in order to develop tools relevant for phenomenological applications. The broader implications are a substantial education and outreach component which will involve H.S. and undergraduate students coming from historically black institutions. There will also be synergy with Mathematics and experimental groups.